Convective Heat Transfer to Viscoelastic Fluids

Solutions of viscoelastic polymers in water exhibit much lower drag and heat transfer coefficients than water for turbulent flow is a circular tube. This phenomenon is not understood. Since such flows are common in the chemical, food, and petroleum industries, the drag and heat transfer reductions are of practical importance. The proposed research will encompass measurements of drag and heat transfer over a large range of flow conditions, for various viscoelastic fluids, and with systematic variations of all the important parameters. The data will be interpreted with respect to the available predictive models and will serve as the basis for improving the models. Also, semi- empirical representations of the results will be developed for design purposes.